Multivariable Operator Theory

This grant will work on a number of problems connected with multivariable operator theory, that part of operator theory that examines finite collections of commuting operators and the ways in which they are related and interact. The techniques are both algebraic and analytic, with the main tools from analysis being the use of analytic functions of several variables while the algebraic tools are from matrix algebra. In addition the PI will engage in several synergistic activities with undergraduates.

The focus of this proposal is a finite collection of operators on a Hilbert space of infinite dimension. This work makes connections with other areas of mathematical analysis and has a rich history of excitement. In addition the PI will engage in several synergistic activities with undergraduates.